Development and Validation of Accelerated Test Methods for Durability of Trenchless Pipe

DEVELOPNMNT AND VALIDATION OF ACCELERATED TEST METHODS FOR
DURABELITY OF TRENCHLESS PIPE

Ever J. Barbero and Rakesh K. Gupta
West Virginia University

Deteriorated sewer systems can be rehabilitated in-situ using any one of a variety of polymer linings (trenchless, lining) applied to the inside of an existing host-pipe. Here it proposed to develop and validate rapid test methods for determining the relative effectiveness of the various available technologies. In particular, the evolution of creep

compliance of the liners will be predicted for times up to 50 years by employing the time-temperature superpusition theory in concert with the equivalent-time theory; dynamic mechanical and creep compliance data in bending will be utilized as model inputs. Reliability of this procedure will be validated with full-size, long-term creep tests. Finally, a creep buckling model will be implemented using ABAQUS to interpret the full-size strain data in the post-buckling regime. Although data will be obtained on only four materials, results are expected to be applicable to a variety of polymers and polymer-matrix composites.